Molecular crystal motors powered by photochemistry

NON-TECHNICAL SUMMARY
Molecules can be thought of as tiny machines that consume energy and execute some function. Light is a type of energy that can be transformed into motion by a change in molecular shape, a process that is commonly called photoisomerization. If many molecules are aligned together in a solid, then light exposure can cause them to photoisomerize and move in the same direction, generating larger displacements or forces. This photomechanical effect can be harnessed to make actuators and sensors powered by light instead of electrical energy. A more ambitious goal is to use light to fuel continuous motion, in much the same way that a car motor takes a chemical fuel like gasoline to generate continuous rotation of the tires. Preliminary experiments have shown that such molecular crystal motors are possible, but the physical basis of their operation is not understood. With support from the Solid State and Materials Chemistry Program in NSF’s Materials Research Section A, researchers at the University of California Riverside synthesize new molecules that can act as molecular crystal motors when assembled, while also providing insight into how these “motors” actually function. This require a combination of spectroscopy, microscopy and crystal growth techniques to uncover the mechanisms of their operation. Combined with theory, these results could enable the design of molecules that self-assemble into light-powered molecular crystal motors that can be used to power micromachines or swimming robots. Therefore, such materials could find eventual application across a broad range of fields spanning from engineering to medicine, by making it possible to create microdevices powered by light.

TECHNICAL SUMMARY
Molecular photoisomerization converts photons into Angstrom-scale motions. When these motions are aligned in a crystal, they can generate larger scale mechanical motions (bending, twisting, expansion). With support from the Solid State and Materials Chemistry Program in NSF’s Materials Research Section A, researchers at UC Riverside investigate the challenging problem to transform a continuous stream of photons into reciprocating motion, analogous to a motor. Molecules composed of an anthracene core with a tail that undergoes E-Z isomerization possess several advantages for the study of photomechanical motors, including visible light absorption, chemical tunability, crystal morphology control through the use of surfactants, and a demonstrated ability to support sustained oscillations under continuous illumination. This family of photochromes provides a model system to explore how motor function arises. The award supports two parallel efforts: First, the effect of systematic changes of the molecular structure of organic crystals on motor behavior is assessed. Researchers investigate the effects of swapping the anthracene core for other polycyclic aromatic hydrocarbons, adding chemical substituents to the anthracene ring, and modifying the isomerizable tail. Systematic changes in photophysical behavior and crystal packing are correlated with the observation of light-induced oscillations. The second effort involves detailed physical characterization of the chemical, mechanical, and dynamic properties of single microcrystals composed of a high-performing molecular derivative. Confocal Raman microscopy and bending measurements quantitatively connect photochemical reaction kinetics with the mechanical deformation. The oscillatory behavior of individual, size-selected crystals is measured under a variety of conditions in a small-scale aquarium. Together, these physical measurements are used as inputs for more advanced chemomechanical modelling. Successfully reproducing the crystal motions observed in the aquarium through this modelling effort, using inputs derived from the single crystal experiments, can guide the design of new future molecular crystal motors.